2012 Multiphoton Processes GRC; June 3-8, 2012 at Mount Holyoke College.

The funding from this grant will be used to support students and postdocs so they can attend the 2012 Multiphoton Processes Gordon Research Conference (the 16th in a series of biennial conferences), which will be held June 3-8, 2012 at the Mount Holyoke College in South Hadley, MA. This international conference is well-established, yet continuing advances in atomic, molecular, optical, and chemical (AMOC) science and related technology preserve its vibrancy. The 2012 meeting is structured around contributed posters and 8 sessions of invited talks that will focus on topics at the forefront of AMOC science including: High Harmonic Spectroscopy; Attosecond Electron Dynamics; ATI and Photoelectrons; Strong Field Processes and Sources; Photoionization delay; X-Ray Imaging; and Free-Electron Laser Experiment and Theory. The broad range of expertise and perspectives among attendees provides a unique and stimulating environment for the development of new ideas in these rapidly evolving areas.